Orbital Momentum Densities and Weak Bonding Interactions

Drs. Coplan, Moore and Tossell from University of Maryland are supported by a grant from The Experimental Physical Chemistry Program to perform (e,2e) spectroscopy on a number of weakly bonded chemical systems. This unique experiment permits the direct observation of single molecular orbital momentum wavefunctions from which much information about the nature of the chemical bond can be obtained. This laboratory is the only one in the United States which has the capability of performing this very unique type of spectroscopy. The proposed research is directed at an enhanced understanding of the the way in which the outermost electron orbitals of two isolated species are modified upon the formation of a weak bond. By considering a variety of such interactions of carefully chosen strengths and geometries, these investigators plan to chart the interactions and relate them to the dynamics of chemical reactions. Five major classes of weakly bonded systems will be studied: 1) Lewis acid-base complexes, 2) Hydrogen bonded molecules, 3) Dimers, 4) Transition metal organometallic complexes, and 5) Molecules containing lone pairs and pi orbitals.